Alignment and Transport of Colloidal Particles in Nonhomogeneous Electric Fields

Abstract CTS-9420780 J. L. Anderson, Carnegie-Melon University An investigation of the electrophoretic motion of nonspherical colloidal particles is proposed. The existence of a critical current needed to align slender particles at small pore apertures will be experimentally determined. A hydrodynamic model, including the rotation and translation of spheroids and spherical doublets in nonhomogeneous electric fields will be develop. The theory will be extended to motion of particles induced by a gradient of the particles concentration near a surface-active surface (diffusiophoresis of colloids. The research has relevance to electrofiltration, and provides fundamental understanding for other potential applications where electrophoretic alignment is important.